Mechanism of Geotropism

This is a Research Opportunities for Women Career Advancement Award. The PI will use the award to learn patch clamp and other electrophysiological techniques, in order to apply this technology to her ongoing studies of geotropism in plants.